Site-Specific Probing of Folding and Unfolding of Yeast Iso-1-Cytochrome c By Dielectric Resonator-Based Flow and Stopped-Flow EPR

Scholes
MCB 9817598

The objective of this study is to develop and apply the unique kinetic spin label
EPR (electron paramagnetic resonance) methods developed in this laboratory to
observe the early millisecond folding of globular proteins. An immediate focus is
on the globular protein, yeast iso-l-cytochrome c. The apparatus to be employed
involves dielectric resonator-based flow and stopped-flow EPR. The spin label
method has the advantage that the label can be attached to any position in a protein that
can be mutated to cysteine, and the expression system for making such
mutations has been established. To date the two common methods for studying
early folding events have been pulse label NMR spectroscopy and rapid flow
fluorescence spectroscopy. This spin label method is dependent on neither
hydrogen bonding (as is the NMR method), nor the existence of the
single fluorescing tryptophan in cytochrome c. While the pulse label NMR
and fluorescence results will provide a background, the combination of time
resolution of stopped-flow and flow physical methods and label placement at
previously unstudied positions presents a singular opportunity to resolve a
fundamental controversy concerning the early events in protein folding. The
controversy is whether the early folding is a general hydrophobic collapse
or whether early folding progresses through a sequence of substructures.
This controversy is of course not limited to cytochrome c; it is simply
best delineated so far in cytochrome c. The general hydrophobic collapse
would be reported similarly by spin probes at numerous positions; whereas a
progression of folding substructures at different locations would be
reported differently and sequentially by probes at different locations. To
test the generality of this finding in cytochrome c, the plan for the
future will be to probe other protein systems for their early folding
events.

This study applies a new biophysical technique that relies on new
microwave (electron paremagnetic resonance) and kinetic equipment to
understand in a unique way how protein folding occurs in its early stages.
A protein is a linear sequence of amino acid building blocks, and there is
no consistent explanation yet for the time course for proteins to fold to
their biologically functional 3-dimensional structure. A labeling procedure
is used which puts probes at individual amino acid sites to tell if the
sites are involved in folding. The apparatus will then be used to examine
quickly within milliseconds after folding starts whether the
labeled amino acid is indeed already folded. The specific goal of this
study, using probes at separate protein-engineered sites, is to resolve the
question of whether a protein undergoes a universal collapse when folding
starts or whether folding progresses in a sequence from one part of the
protein to the next. It is presently not known whether the collapse model
versus the sequential folding model is the proper one, and this kinetic
method combined with localized probes is intended to determine what
actually happens.